Geometry of Langlands duality

Abstract
Mirkovic

The proposal is directed towards the geometry underlying the
Langlands program. A major and expanding influence are the ideas from
quantum field theory. The ``Critical Quantization'' program aims to develop a
formalism, that would unify approaches to modular representation theories
and to representations of affine Lie algebras at a critical level, and
should have wide including the study of derived categories of coherent
sheaves.
The ``Quadratic Koszul Duality'' project attempts to give a
geometric approach to a family of dualities that
appear throughout representation theory, culminating with the Cherednik
Fourier transform. Finally, we propose
certain ``completely algebro-geometric'' approach to Class Field Theory
and Langlands program.

The project aims towards relating and unifying developments in mathematics
(representation theory, algebraic geometry, number theory)
and theoretical particle physics (quantum field theory and in
particular string theory). The main development in mathematics
in the last decade was the influence of predictions derived from
Quantum Field Theory. This has resulted in some inroads and I expect
the direction to reverse with mathematics contributing
essentially to the understanding of particle physics and the
``Grand Unification'' project of giving a consistent description of known
physical forces.
The main goal of the project is to take certain steps in this direction
by explaining mathematically certain elements of String Theory and
Quantum Field Theory in general.